The Living and Learning Science Retention Program(LALSRP)

The Living and Learning Science Retention Program (LALSRP) at Saint
Augustine's College is designed to facilitate entry into the junior year by providing a
support system for entering freshmen and sophomore science, mathematics and computer
science (SMC) majors. A comprehensive approach to provide a support system will be
accomplished by implementing the following objectives:
1. To revise and update curriculum to incorporate cooperative learning which will
enhance study skills and generate independent learners;
2. To provide participants with intramural research experiences which will increase
their analytical reasoning skills and provide hands-on laboratory experiences;
3. To build students' confidence so that they can successfully pursue an
undergraduate degree in science and technology by providing positive role
models, mentors and a strong academic support system;
4. To assist participants in the understanding of the process involved in pursuing a
degree in science and technology by offering seminars, workshops and field trips;
and
5. To enhance and develop faculty participants by providing research and curriculum
development opportunities.

In order to accomplish the stated objectives, the program will consist of five components:
(1) Curriculum Enrichment which will include a Pre-freshman Summer Bridge Program,
Enrichment Center and a Village of Science and Technology (VOSAT); (2)
Undergraduate Research Experience; (3) Seminars and Workshops; (4) Scholarships and
(5) Faculty Development.

This program will enhance the living and learning community on the campus of
Saint Augustine's College. It will serve as a model that can be replicated across the
campus and can also be applied to other disciplines. It is anticipated that by the end of
the 5-year funding period, the number of SMC graduates at Saint Augustine's College
will increase 2 fold. In five years the campus will have an established infrastructure to
support the transition of freshmen into the junior year. The dormitory VOSAT in
particular, will stimulate scientific and technological discussions among majors and
nonmajors on the campus. This proposed Living and Learning Science Retention
Program will support 30-50 students each year and impact approximately 1,400
undergraduate students who reside on the campus of Saint Augustine's College. This
program will serve as a model that can be replicated on any campus that has a minority
based population.